Engineering Faculty Internship: Developing Knowledge-Based Systems

The objective of this faculty internship project is the development of an automated sales order system and its integration with other management systems within an industrial environment. The design of the system is such that no specialized knowledge of products, components or prices is required by the client. The structure of the system allows machine orders to be placed and confirmed without human intervention. This effort draws heavily from concepts of knowledge-based systems and its applicability extends to both manufacturing and construction systems. The project is viewed as a major step in the development of a long term relationship between the researchers and the sponsoring organization.